Mathematical models for bacterial propulsion and pattern formation

The investigator constructs mathematical models for bacterial
propulsion and pattern formation. Attention is restricted mostly
to two classes of bacteria: myxobacteria and mollicutes. This work
is performed in collaboration or correspondence with experimental
laboratories engaged in studies of these organisms. The models are
primarily directed towards understanding and explaining their
experimental observations. The specific goals of this project are to
model (i) the gliding mechanisms of Myxobacteria and Mollicutes, (ii)
the swimming mechanisms of E. coli and Synechococcus, and (iii)
aggregation and fruiting body formation in Myxobacteria.

The investigator develops mathematical and computational models
of different mechanisms by which bacteria move. Bacteria use
many different mechanisms to move about on surfaces and through
fluids. The term "gliding" is used to describe the motion of
bacteria on surfaces when there is no visible means of
propulsion. The investigator studies the molecular and cellular
mechanisms that underlie this mysterious form of locomotion.
Many bacteria swim, driven by rotating "propellors" called
flagella. However, the motor mechanism that turns this propellor
has not been worked out, and is a focus of this project. The
photosynthetic bacterium, Synechococcus, lives in the oceans, and
constitutes the most abundant organism on the planet. How it
swims is a longstanding mystery, for it has no visible propulsive
organelle on its surface. The investigator and his colleagues
suggest and model a mechanism for how this bacterium swims. The
broader impact of these studies grows from the insights they
provide into the propulsion, development, and mechanochemistry of
bacteria, many of which are important pathogens of great medical
interest.